Beyond The Edge of the Sea: Diversity of Life in the Ocean Wilderness

This Communicating Research to Public Audiences proposal is based on Cindy Van Dover's NSF-funded research, OCE 0350554, Biogeography and community structure in mussel beds at Pacific hydrothermal vents. The primary deliverable is a traveling science and art exhibit that focuses on the PI's deep sea research of hydrothermal vents and the organisms living in those environments. On several of these expeditions, the PI was accompanied by nature watercolorist/scientific illustrator, Karen Jacobsen. Jacobsen's work, along with animated sculptures of tubeworms by sculptor, Chuck Pell, and displays of dive artifacts will form the body of the exhibition, which will travel to both marine and art museums. Major partners are the North Carolina Maritime Museum and the Muscarelle Museum of the College of William & Mary. Muscarelle will manage the tour. Additional learning products will include an exhibition catalog with essays by Van Dover and others, a naturalist's guide to the exhibition, educational materials for children, video podcasts, docent training materials, and website content